Research in Elementary Particle Physics

A broad program of research in elementary particle physics and an associated education and outreach program are proposed by a research group from the University of Chicago Physics Department with Henry Frisch as the P.I. Their program includes: the ATLAS detector construction project, which will be at the energy frontier at CERN's Large Hadron Collider; the CDF collaboration that shared in the discovery of the top quark at the Fermilab proton-antiproton collider and is operating at the current energy frontier; the OPAL collaboration, operating at LEP, the highest energy electron-positron collider, which is performing stringent tests of theoretical models; and the KTeV experiment, investigating the asymmetry of matter and antimatter in the universe. This group has an exemplary education/diversity/outreach portfolio comprising five projects: the Teachers Academy for Math and Science (TAMS); the Lecture Demonstration Spectacular, associated with the TAMS project; an REU activity that targets women and underrepresented minorities; participation in the Compton Lecture Program; and a new node in the Quarknet project, a web-based project involving high-school students and teachers working with particle physicists at Fermilab and CERN.